Mathematical Sciences Computing Research Environments

This award will provide essential computational resources, to several on-going research projects in number theory, algebra, and algebraic geometry. These projects cover the related areas of representation theory; modular forms and elliptic curves; the topology of algebraic varieties and Picard-Fuchs, differential equations; and Arakelov theory, K-theory, and arithmetic geometry. The investigators plan variously to apply symbolic algebra programs, such as REDUCE, Maple, Macaulay, to these problems; to develop packages of procedures in these languages; and to develop programs in lower level languages such as FORTRAN and C. In addition, the equipment will be used to support graduate students working in these areas.